BE/CNH: Human Dimensions of the Arctic System: A Workshop to Stimulate Research on the Dynamics of Coupled Natural and Human Systems

This workshop brings together a range of researchers, including graduate students and junior faculty, from a variety of natural and social science disciplines to understand the Human Dimensions of the Arctic System (HARC). The close linkages between people and the environment, the great variability in both human and natural systems, and predictions that the polar regions will experience large impacts of global change make the Arctic a compelling region for research in to the dynamics of coupled natural and human systems. The workshop will include strong participation from the Arctic indigenous community. Research partnerships between disciplines and among researchers and indigenous representatives will be fostered by the opportunity to discuss pressing environmental, social, and cultural concerns. This project is an award emanating from the FY 2001 special competition in Biocomplexity in the Environment focusing on the Dynamics of Coupled Natural and Human Systems.